Representation Theory of Infinite Dimensional Lie Aglebras and Quantum Field Theory

REPRESENTATION THEORY OF INFINITE DIMENSIONAL LIE
ALGEBRAS AND QUANTUM FIELD THEORY
IGOR FRENKEL
Abstract
The proposal is dedicated to the development of three interrelated areas in the
representation theory of infinite dimensional Lie algebras and their applications to
quantum field theory (QFT). The first part of the proposal is focused on the vertex
operator algebra structure of a modification of regular representations of affine Lie
algebras. The author plans to prove, in particular, his conjecture that the zeroth
semi-infinite cohomology of the reduced vertex operator algebra yields the famous
Verlinde algebra of the Wess-Zumino-Novikov-Witten model of 2 dimensional QFT.
The second part of the proposal consists of a cohomological and K-theoretic realization
of various algebraic constructions of the first part by means of 4 dimensional
classical Yang-Mills theory. The author proposes to use the geometric construction
due to Nakajima of representations of affine Lie algebras based on Yang-Mills
instantons on asymptotically locally Euclidean spaces, and also a new geometric
construction related to the first one by the level-rank duality discovered by the
author in the algebraic context in his earlier work. Finally, the third part is dedicated
to a new direction in the representation theory of 3 dimensional convolution
and current algebras presently developed by the author. It is based on a new noncommutative
geometry of quantum Minkowski space-time recently introduced by
Jardim and the author in their study of a noncommutative version of the Yang-
Mills theory. The three parts of the proposal are related to each other in that they
constitute a new program: a representation theoretic approach to 4 dimensional
QFT. This is a far reaching extension of the representation theoretic approach to
2 dimensional QFT previously developed by the author and other mathematicians
and mathematical physicists.
The proposal is devoted to problems at the frontiers of modern representation
theory: the field of mathematics that studies symmetries and their realizations.
By its nature representation theory underlies and unifies the structures of diverse
areas in mathematics and physics, and in the past 25 years the author has made a
number of important contributions to this field. The present proposal contains a
new program of development for the representation theory of infinite dimensional
symmetries which is especially relevant to the most advanced part of the existing
theoretical physics that is supported by experimental physics; namely, 4 dimensional
quantum field theory. Progress in this direction will enrich our understanding of
the fundamental mathematical structures that lie at the foundation of the physical
universe.